Microstructure and Superconducting Properties of Bulk Hg-Ba-Ca-Cu-O on Metallic Surfaces

9526231 Schwartz The proposed research integrates synthesis, microstructural characterization, and superconducting properties characterization to explore the critical influence of a metallic interface on the HgBa2Can-1CunOx system, the superconducting oxide system with highest critical temperature yet achieved. The project objectives include identifying chemically compatible metallic substrates, understanding and controlling interfacial reactions, understanding the influencing factors for microstructural development of the superconducting and competing non- superconducting phases (including texture), and understanding the microstructure/superconducting properties relationships, including flux pinning and weak links. Synthesis studies will employ a two-zone assembly that allows for independent control of the mercury pressure and the annealing temperature. Tapes will be cast on metallic substrates. Thermal processing, atmosphere, stoichiometry, and substrate metal are important variables. The samples will be characterized using a variety of techniques. %%% The project addresses the underlying scientific issues for applications of the HgBa2Can-1 CunOx superconducting oxides. A deeper understanding of the relationships between metallic interfaces, microstructure, and properties of high temperature superconductors will result. ***